Fast Spectral-Galerkin Methods and their Applications

As computer simulations are playing an ever increasing role in many
branches of science and engineering and are rapidly replacing much of
the expensive prototyping and testing phases in manufacturing and in
science explorations, fast and robust numerical methods are becoming
an indispensable tool for many scientists and engineers. The focus of
this project is to design fast and robust spectral-Galerkin methods
for solving a large class of partial differential equations, and apply
them to investigate several important problems of current interest.
The proposed research will result in fast and accurate numerical
algorithms for a class of partial differential equations with
applications in acoustic and electromagnetic scattering, fluid
dynamics and materials science.

It is expected that the proposed numerical algorithms will allow
simulations of three-dimensional time-dependent problems within a
reasonable turn-over time, and provide capabilities to numerically
attack challenging problems arising from emerging engineering and
scientific applications. In particular, the proposed numerical
simulations will contribute towards better understandings of the
complex physical and mathematical problems, and provide valuable
information for the design of advanced materials and on the
rheological and hydrodynamic properties of complex fluids. The
proposed research will also generate opportunities for undergraduate
research projects such as software development, parallel computation
and numerical simulation.